CIF:Small: Dynamic Dictionary Learning with Low-rank Interference

By 2020, it is projected that every human being will contribute 1,000GB
of the sensor data individually. These sensors include but not limited
to GPS, accelerometer, gyroscope, microphone, camera, all kinds of
wearable biomedical sensors, etc. Beyond the domain of monitoring
human activity, multi-sensor data processing has been an active
research topic within the context of numerous practical applications,
such as medical image analysis, remote sensing, and military
target/threat detection. One powerful tool to tackle these critical
Big Data problems is sparsity-driven signal-processing techniques. A
sparse representation not only provides better signal compression for
bandwidth/storage efficiency, but also leads to faster processing
algorithms as well as more effective signal separation for detection,
classification and recognition purposes since it focuses on the most
intrinsic property of the data. Sparse signal representation allows one to
capture the hidden simplified structure present in the data jungle, and
thus minimizes the harmful effects of noise in practical settings.

This research investigates the problem of dynamic dictionary learning to
obtain the most effective and adaptive sparse data representation even
in the presence of low-rank interference. The investigator seeks to
develop a general framework that takes advantage of diversity, yet
complementary, features in vast correlated data sources collected from
multiple, possibly heterogeneous, sensors co-located in the same
spatio-temporal physical space, recording the same physical event.
Such scenarios ensure that interference noise patterns are very similar,
hence justifying the low-rank property of the interference, while allow
specific structural sparsity pattern of the signal of interest to be captured
in the dictionary and/or in the sparse codes.